Scientific Computing Research Environment for the Mathematical Sciences

GLAZ DMS-9628467 The Department of Mathematics at the University of Maryland, College Park, will purchase $77,323 of equipment and will spend $23,088 for personnel to support research in the mathematical sciences. The equipment will be used to study: (1) Systems of Conservation Laws and Applications to Computational Fluid and Solid Mechanics; (2) Hydrodynamics near the liquid-vapor critical point; (3) Fast Multilevel Boundary Element Algorithms; (4) Dynamics of encapsulated vortices in nonlinear Schrodinger equations, and (5) Eigenvalue Problems for Ordinary Differential Equations. We purpose to upgrade the RAM memory of the existing SGI Indigo2 workstation by 256MB and purchase two Indigo2 workstations with 250MHz R4400 chip, and one Indy workstation with a 200MHz R4400SC chip.